Asymptotic and algorithmic properties of groups

DMS-0245600
Sapir, Mark V.

Abstract

Title: Asymptotic and algorithmic properties of groups

The PIs propose to study asymptotic and algorithmic properties of groups.
The topics include a torsion free non-amenable finitely presented group
without free non-abelian subgroups, a finitely presented infinite torsion group,
Dehn functions of groups including Dehn functions of residually finite and
Metabelian groups, isoperimetric functions of aspherical manifolds, residually
finite hyperbolic groups, structure properties of hyperbolic groups (is every
torsion-free hyperbolic group free-by-finite exponent?), n-dimensional
diagram groups.

Algorithmic properties of groups have been a subject of intensive study
since the beginning of the 20th century (Dehn and Tietze). Novikov, Boone
and Higman showed deep connections between logic (especially the theory of
recursive functions) and group theory. A more recent work by Gromov and
others showed a connection between algorithmic and asymptotic properties
(especially isoperimetric and growth functions) of groups and the related
topological objects. The PIs found even more intimate connections between
complexity of algorithms and asymptotic properties of groups. In particular,
they have characterized groups whose word problem is in NP in terms of Dehn
functions and Higman embeddings, found an NP-complete group, etc.. The PIs
propose to further study these connections, and their applications to some
outstanding Burnside-type problems. In particular, they propose to use
Higman embeddings to construct finitely presented torsion groups and in the
study of Dehn functions of metabelian groups. Another direction of their
research deals with connections between geometry and structure of groups. In
particular, they propose to study the class of finite dimensional diagram
groups, for dimension greater than two which, they believe, include a large
class of groups acting ``nicely" on cubical complexes. Structural properties of
hyperbolic groups will also be under investigation.